Combining EM and Monte Carlo to Maximize Intractable Likelihood Functions

ABSTRACT

This proposal concerns parameter estimation methodology for an
important class of statistical models. These models, which we refer
to as ``generalized hierarchical models'' (GHMs), have proven to be
extremely useful in a wide range of scientific endeavors. Specific
examples of applications that have appeared in the scientific
literature include: the impact of passive smoking, changes in voting
behavior, clinical trials for a treatment for epilepsy, social surveys
of households in rural China, sheep cloning experiments, the
estimation of animal abundance and the analysis of multivariate
survival data.

A general purpose algorithm for estimation called EM
(expectation-maximization) is particularly suited to the GHM setting.
However, implementation the algorithm is complicated because it often
involves the calculation of intractable multi-dimensional integrals.
Two methods for dealing with these integrals that have received some
attention recently are Monte Carlo EM (MCEM) and Stochastic
Approximation EM (SAEM). Both methods involve replacing intractable
integrals by Monte Carlo approximations. Unfortunately, applications
of the these Monte Carlo fitting algorithms to GHMs can often take
hours or even days to converge. This has limited their widespread use
so far. The situation will no doubt improve with the availability of
faster computers. However, the development of much faster algorithms
would accelerate this process tremendously. Hence, the proposed
research concerns a detailed comparison of the MCEM and SAEM
algorithms with a view towards substantially improving their
performance.